Particle Accelerator School; Upton, New York; July 24- August4, l989 (Physics)

This award will support publication costs and manuscripts preparation for the 7th symposium summer school of the U.S. Particle Accelerator School to be held at the Brookhaven National Laboratory, July 24-Aug 4, 1989. The symposium school consists of two weeks of intensive short lecture courses on a broad range of subjects on the Physics and Technology of Particle Accelerators. This year the subjects will include a discussion on a variety of accelerators, including pulsed high current accelerators, synchrotron radiation sources, high brightness beams and free electron lasers, linear colliders and SSC.